Mathematical Sciences: Mathematical Analysis of Fluid Motion

This research in the mathematical theory of fluid mechanics will analyze sets of complicated nonlinear sytems of ordinary and partial differential equations which arise in fluid flow problems. Singularly perturbed ordinary differential equations associated with solitary water waves, boundary layer theory, and flame propogation will be considered. Traveling wave solutions of the Euler equations in an infinitely-deep, stratified fluid will be examined, and the existence of a classical solution of the standing wave problem will be investigated. Theory developed in this research should advance our basic understanding of the behavior of fluid flows.